Automatic Processing of Spoken and Written Lecture Material

In the past decade, we have seen a dramatic increase in the availability of
on-line academic lecture material. It is conspicuous, however, that in contrast
to many other communicative activities, lecture processing has until now
enjoyed little benefit from the development of human language technology. The
goal of this proposal is to enable fast, accurate and easy access to lecture
content. We will develop new technologies in the area of speech recognition,
structure induction and summarization.

Our work will contribute to a better understanding of the relationship between
written and spoken language, a long standing issue in linguistics which has
seen limited empirical research. Our research will rectify this situation by
an extensive corpus-based study of this relationship at different levels,
ranging from vocabulary to discourse variations.

The tools we propose to develop will be integrated and tested in the framework
of the MIT Open CourseWare Initiative, a large publicly available on-line
repository of teaching material from 500 MIT courses. In addition, we
will also incorporate our tools in the Liberated Learning Initiative, which
works on the integration of students with disabilities in mainstream higher
education.